STEM-HELP (Higher Education Liaison Project)

Project Impact at Northeastern University and the Eisenhower Regional Alliance at TERC propose a design project to create a customized technical assistance plan for higher education disciplinary and education faculty that focuses on curriculum use along with the professional development models required for successful implementation. It is anticipated that these activities will result in more effective provision of services by higher education faculty to teachers and schools in the MSP projects. It is also anticipated that faculty would incorporate the use of STEM materials and professional development modules into their preservice teaching.